Expedited Award for Novel Research: Fabrication and Charac- terization of New Double-Heterojunction MODFET

The PI's wish to fabricate new types of modulation doped field-effect transistors (MODFETs). A very high density of electrons will be supplied from a selectively doped n-A1GaAs/GaAs (60-100A)/n-A1GaAs double-heterojunction rectangular well structure grown by molecular beam epitaxy. The A1 mole fraction (x) to be used in these devices will be less than the conventional value of 0.3. It is expected that the reduction in x will avoid the persistent trapping effects, normally observed in these devices at cryogenic temperatures, without sacrificing the device performance. The dimensions and the doping concentration will be chosen to achieve a high transconductance and a large current swing.